Geotraces Pacific section: dissolved Fe, Mn, Zn, Cu, and Cd and colloidal Fe

A scientist from the University of Miami Rosenstiel School of Marine and Atmospheric Science plans to participate in the 2013 GEOTRACES Eastern Pacific Zonal transect cruise to determine the vertical distribution of dissolved (<0.2 µm) iron, manganese, zinc, copper, and cadmium in samples obtained between the East Pacific Rise and Tahiti. In addition, measurements of soluble (<10 kilo Daltons) and colloidal iron will be made on all samples collected during the cruise track from Peru to Tahiti. Results from this study will be used to determine the influence of hydrothermal vents on the source and sink of the above mentioned elements and to understand the role of colloid iron in the transport of hydrothermal iron, as well as the cycling of iron in the oligotrophic South Pacific and low oxygen waters near the continental margin off Peru.

In terms of the broader impacts, it is anticipated that results from the project will be incorporated into lecture material for classes. One graduate student will be supported and trained as part of this project.